Postdoctoral Research Fellowship in Plant Biology

9404025 Fowler This is an individual award for the Postdoctoral Research Fellowship in Plant Biology. The applicant received his Ph.D. from University of California at Berkeley. His Ph.D. research was in developmental genetics in maize. He now plans to change his field of research and carry out his postdoctoral fellowship research in the laboratory of Dr. Ralph Quatrano at University of North Carolina. The proposed research entitled "Mechanism of establishment of cellular polarity in the brown alga, Fucus" will expand the scientific experience of this Fellow into basic cell biology.